Meeting Planning and Consultation for Programs in the Engineering Directorate, FY 2008-09

This award provides funding in FY 2008 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC) and the Industry/University Cooperative Research Centers (I/UCRC) Programs during FY 2008 and FY 2009.